A Joint Research Effort between UMCP and UNAM: "Environmental Risk of Arsenic: Geochemical Processes and Speciation"

9613706 Torrents Understanding the sources and sinks of heavy metals in the environment is critical to developing technologies to prevent pollution from these elements. The proposed research addresses the physical and chemical interactions of arsenic with soils and sediments before it ultimately finds its way into ground or surface water. This topic is of particular importance in all Latin American countries and especially Mexico. Arsenic pollution of groundwater and surface waters leads to human health problems such as cancer, and is particularly problematic in mining areas where complex geochemistries determine its fate. To help understand how the reactions of various minerals interact under natural conditions and how the site geochemistry influences the migration of As metals and metalloids, the research will study As speciation and sorption as a function of soil mineral composition, pH, Eh, and the presence of dissolved organic and inorganic ions. The major objective is to quantify the relative importance of the different processes on As mobility. Specific objectives include: developing meaningful laboratory leaching tests to assess how labile As and As-rich-tailings are; developing analytical and extraction techniques to determine As- speciation in soils; quantifying the importance of Fe and Mn oxides in As retention; quantifying factors controlling As dissolution. An understanding of As geochemistry can lead to better means of pollution prevention, especially from mining sources. The proposed work is part of an ongoing collaboration agreement between University of Maryland College Park (UMCP) and Universidad Autonoma de Mexico (UNAM) to build a program in Environmental Engineering which will facilitate the visits by students/researchers, develop an infrastructure to facilitate "sandwich' degrees (students from UMCP to conduct field work in Mexico and students from Mexico to participate in courses at UMCP), train Mexican students in topics of interest to their own country, and identify and establish new areas of common interest between the two universities. The proposed research will use both surrogate contaminated soils spiked with different levels of As under different pH and redox conditions, and real As-rich tailings and will include a mixture of laboratory and field work. Well controlled laboratory studies will be designed to elucidate mechanisms. The field studies, conducted in Mexico, will elucidate the relative importance of the different mechanisms from both a kinetic and a thermodynamic approach. The approach taken in this proposal and the knowledge gained will not only benefit the environment surrounding mining communities but also extensive geothermal and agricultural areas where arsenic concentrations are often high. Knowledge gained will provide a basis upon which pollution control technologies may be established.***